An Integrated Instrumentation Package for Undergraduate Seismology

The University of Wisconsin, Oshkosh will purchase a 24-channel digital floating point seismograph, and an associated microcomputer. This instrumentation will be used to improve instruction in undergraduate courses in geophysics, geological exploration, engineering geology, hydrology, and environmental geoscience by introducing students to the use of seismic techniques in these areas. In addition the instruments will be used for independent projects by undergraduate students. This project involves a collaborative effort between the physics department and geology department at UW, Oshkosh. The NSF equipment grant will be matched by an equal contribution from the University of Wisconsin, Oshkosh. In addition, the University will provide $8.853 in summer salary support for the PI and Co-PI as an overmatch.